High-Pressure Investigation of Protein Crystallization (Collaborative Research)

9510302 Glatz The objective of this project is to study the mechanisms by which pressure affects nucleation and growth in protein crystallization systems. The goals of this research are to: (1) determine the generality of the favorable rate and yield phenomena that have been observed for a limited set of proteins; and (2) probe the roles of protein and solvent physical properties in the crystallization process. ***